Computer Aided Engineering Software Documentation

This project provides graduate assistant support for the completion of three graphics-based, interactive nonlinear analysis computer programs. Efforts will be made to convert the software to engineering workstations for broad applications. The technical documentation to be finalized requires the editing of user documentation in "how to get started" form, the compilation of materials from scattered sources and the assembly of programmer's documentation for later expansion and modification. This award is supported under the ENG provisions for the "Expedited Awards for Novel and Exploratory Research".